Materials Research Science and Engineering Center

9400362 Eisenberger The Materials Research Science and Engineering Center (MRSEC) at Princeton University supports interactive research in three major groups addressing the synthesis and understanding of mesoscopically structured complex materials with the ultimate goal of rational design of materials for industrial applications. The group which is focused on electronic transport in non- Fermi liquid materials combines expertise in theoretical physics and synthesis of electronic materials with a new high magnetic field facility to explore the properties of novel materials with restricted geometries and low- dimensionality. The study of these materials is unified by common theoretical concepts and the prediction of properties not observed in standard materials. The group investigating organic thin films and quantum structures is exploring a new class of engineering structures and materials based on the controlled growth, at the monolayer level, of a wide range of semiconducting organic thin films. Investigators in the group concerned with microstructured macromolecular soft materials deal with materials formed from complex fluids. Soft materialq with complex microstructures are formed by the spontaneous evolution of structure in the liquid state; they are self-assembling. This group seeks a unified understanding of the materials science of such materials. The MRSEC also supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research. The center participates in an undergraduate materials science certification program and in a summer research program for undergraduates. The MRSEC is associated with an educational outreach program with emphasis on attracting and retaining women and underrepresented minorities in materials science and co-sponsors a materials science and engineering training program for K-12 teachers. The MRSEC administers an industrial outreach and visitors program. The MRSEC currently supports 20 faculty, 6 postdoctoral research associates, 1 technical staff member, 22 graduate students, and a significant number of undergraduates through their summer research program. The Princeton MRSEC is directed by Professor Peter M. Eisenberger. ***